Hypercube for Parallel Algorithms Research

A hypercube computer will be provided for researchers at SUNY-Buffalo for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The equipment will serve three central research projects. The first project involves fundamental research on hypercube algorithms emphasizing those that will be used to solve problems in image analysis, graph theory, and computational geometry. The second project will implement on the hypercube multiprocessor an image understanding task that involves several image processing tools that are opportunistically invoked by a control structure. The third project will develop algorithms for a hypercube to perform numerical computations such as solving algebraic eigenproblems. These numerical algorithms should provide solutions to problems in computational geometry, such as proximity queries, and dynamic programming.